IRES Track 1: Chapman - Stockholm International Research Experience in Heterogeneous Catalysis

Science is naturally an international endeavor; however, undergraduate students are often not exposed to this critical aspect early in the scientific careers. STEM students at Chapman University, a midsize undergraduate university located in diverse Southern California, are often engaged in research with faculty, participate in local summer internships, and study abroad through campus programs. Despite these opportunities, students rarely have the opportunity to experience research on the international scale at other research institutions. In collaboration with Stockholm University and the KTH Royal Institute of Technology in Stockholm, Sweden, U.S. undergraduate students at Chapman will have the opportunity to perform research in heterogenous catalysis for 10 weeks during the summer. The learning objectives of the program are to (1) provide transformative international research experiences for undergraduate students, (2) increase student awareness of new research fields, including, heterogeneous catalysis, (3) train the next generation of international researchers, (4) increase the participation of under-represented students in STEM fields, (5) expose students to the benefits of international collaborations, and (6) educate students on Sweden’s long and impactful history in the sciences. These activities will prepare students with the skills needed to be effective and ethical scientific researchers.

As the world population continues to rise, novel solutions to global issues, such as climate change, food production, clean energy production, access to clean water, and pollution control, will need to be developed. Heterogeneous catalysis often plays a critical role in combating these challenges, from synthesizing ammonia for fertilizers using the Haber-Bosch process, to synthesizing carbon-neutral fuel with the Fischer-Tropsch process, to reducing pollutants in the air with the catalytic converter in cars. As the urgency of global challenges increase, it becomes increasingly important to train a scientifically literate and technically trained workforce whose backgrounds span multiple disciplines. Students from Chapman University will have the opportunity to perform research in foreign research labs at Stockholm University and the KTH Royal Institute of Technology for 10 weeks during the summer. The foreign research mentors have developed a collaboration to investigate model systems for catalytic tar reforming in biomass gasification using modern surface science techniques and computational methods. Student scholars will work collaboratively on these projects and gain experience using sophisticated laser systems, working with surface science instruments, analyzing experimental data, performing kinetic modelling, and writing scientific reports. These student scholars will be encouraged to embark on future scientific pursuits, develop skills necessary to ensure success in the STEM fields, such as problem-solving and critical thinking, and will engage in the international cultural exchange of ideas and practices. These are expected to help create a more diverse population of science-literate citizens to address current and future global challenges.